Texas A&M University Young Scholars Program

The Texas A.& M. University Engineering Experiment Station will initiate a three-week, residential Young Scholars project in Engineering which will provide science enrichment activities for 32 precollege students entering grades 8 and 9. This summer program will emphasize research participation in 13 different engineering fields. The research experience for each Young Scholar will consist of assignment to an undergraduate research project that has been started but not yet completed. Each project involves data collection, analysis, theoretical results and a write-up of experimental procedures.